WOCE Hydrographic Program Sections Along 88W and 150W: Nutrient Technician Support and Methods Comparison; Oxygen Methods Comparison

This proposal is to make nutrient measurements (phosphate, nitrate, silicate) on the World Ocean Circulation Experiment (WOCE) cruises in the Pacific along longitudes 88 and 150 west. The nutrient data are used along with other tracer data to describe the ocean circulation and in models of the circulation, one of the principal objectives of WOCE.